Collaborative Research: CT-ISG: Mitigating Exploits of the Current Interdomain Routing Infrastructure

0716511
Rebecca Wright
Stevens Institute of Technology

0716564
Aaron Jaggard
Tulane University

Collaborative Research: CT-ISG: Mitigating Exploits of the Current
Interdomain-Routing Infrastructure

This project addresses fundamental flaws in Internet-routing
infrastructure using both theoretical analysis and practical tools.
The results not only improve the security of the current Internet, but
also advance principles of secure routing design useful for
next-generation protocols. The project advocates a different approach
than previous work in this area by formally defining comprehensive
requirements for protocol security, rather than imposing new
technologies to address one or two specific exploits.

The Border Gateway Protocol (BGP) provides best-effort connectivity
between the component networks of the Internet, a task called
interdomain routing. However, BGP lacks any security mechanism,
allowing accidental router misconfiguration or intentional attacks
that have far-reaching effects on network stability and traffic
flow. Furthermore, simply adding security mechanisms is insufficient
because BGP also lacks the guarantee that specification-compliant
inputs always produce stable routes across the network.

This project addresses these shortcomings through research on various
assumptions that guarantee good routing behavior and on methods to
verify or enforce these assumptions to prevent deviation from that
behavior. We identify and address attacks that have previously been
studied as well as new attacks that have not yet received attention in
the literature. We target incremental-deployment benefits and
computational efficiency as primary desiderata; thus, our solutions
can offer incentives for immediate adoption without system-wide
changes. Through its educational component, our project introduces
students to cross-disciplinary research. This encourages collaboration
in research projects and allows development of coursework integrating
security, networking, and theory for a timely application domain.